Enhancement of Undergraduate Physics Laboratory with Laser Spectroscopy and Superconductivity Experiments

An enhancement of an advanced laboratory course in modern physics for physics majors is proposed. The specific goal is to offer new experiments closely related to present-day research and applications in the areas of atomic physics and condensed matter, in response to a projected increase of students with interests in applied and engineering physics. The project introduces to the laboratory two new experiments: one using a solid state diode laser to do optical pumping and spectroscopy of atoms in an atomic beam and a second experiment involving measurements on a high Tc superconductor. The laser spectroscopy is combined with a Stern-Gerlach experiment to yield a rich variety of atomic physics effects which would be accessible to the undergraduate student. In addition to the Stern-Gerlach effect, the experiment allows demonstrations of: Doppler-free optical spectroscopy, hyperfine structure, optical pumping, radio frequency resonance, and Zeeman effect. The experiment on a high Tc superconductor involves measurements of the persistent current.